Travel Grants for Graduate Students and new researchers to attend the 24th IEEE International Conference on Plasma Science on May 19-22, 1997

Proposal Number: ECS-9725159 Principal Investigator: Jay Hyman Title: Travel grants for graduate students and new researchers to attend the 24th IEEE International Conference on Plasma Science on May 19-22, 19997 Under this grant, support is provided for graduate students to attend the 24th IEEE International Conference on Plasma Science on May 19-22, 1997. Topics under discussion at this conference include advanced processing of materials and flat panel displays; vacuum electronics and microelectronics; new computational methods in simulations of plasma and electron beams; and industrial electronics. Support is provided at a level which corresponds to travel grants and per diem for five students.